Midwest Dynamical Systems Conferences: 2022 and 2023

This award supports participation in the Midwest Dynamical Systems Workshops in Fall 2022 and Fall 2023. The 2022 Workshop will be held at Indiana University Purdue University Indianapolis from November 18-20, 2022. The 2023 host institution will be selected by the conference's Scientific Advisory Board in the Spring of 2023. The Midwest Dynamical Systems Workshop is an ongoing educational experience for graduate students and a vehicle for supporting the research careers of postdoctoral fellows and junior faculty. This award gives early-career researchers, researchers who are members of underrepresented groups, and researchers without other sources of support, the opportunity to participate in the conferences. Training researchers in dynamical systems contributes to maintaining and building a work force in the United States that has a strong mathematical and scientific ability.

Dynamical systems is a very active area of mathematical research and has interactions with almost every other area of mathematics. Many conferences in dynamical systems focus on a specific sub-area of the subject. In contrast, the Midwest Dynamical Systems Workshops bring together researchers from all branches of dynamics and promote interactions with other fields of mathematics. The Midwest Dynamical Systems Workshops meetings especially encourage talks that build connections between two or more different areas of mathematics and that advocate new areas of promising research. Moreover, participants in the Midwest Dynamical Systems Workshops have discovered important connections between mathematics and other areas of science such as theoretical physics, statistical mechanics, electrical engineering, information theory, economics, game theory, voting theory, and epidemiology. These connections are presented at the meetings. More information can be found on the workshop web site http://sites.math.northwestern.edu/mwds/